Solar Flare and Solar-Interplanetary Phenomena Investigated With High-Energy Charged Particles

The central objectives to this grant are to continue the experimental and analytical studies of the large scale dynamical phenomena in the heliosphere resulting from solar polar magnetic field polarity reversals, and to study solar flare charged particle acceleration in the present solar activity cycle. The first research objective is focussed on both the long term understanding of solar-terrestrial relationships and the solar- interplanetary electrodynamical phenomena which control the propagation of energetic particles and plasmas in the heliosphere. The experimental approach to the first objective above is focussed on charged particles as probes of the heliospheric magnetic fields, whose origin is the solar magnetic field carried throughout the heliosphere by the solar wind. On the other hand, the experimental investigations for solar flare particle acceleration are focussed on measurements of the energy spectrum and elemental and isotopic composition of the solar flares obtained form space experiments. The grant continues support for the two neutron monitor facilities, one at Climax, Colorado, and one at Huancayo, Peru.